Purchase of High Resolution 300 MHz NMR System

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at SUNY Albany acquire a 300 MHz spectrometer which will be used in research investigations in the following areas of chemistry: organosulfur chemistry, synthetic organofluorine chemistry, synthesis of polynuclear antibiotics, clay catalysis of organic reactions, chemical diffusion in polymeric materials and studies of the enzyme Endonuclease III. In each of these areas knowledge of structure is essential for understanding the reactions and properties of the materials. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.